Doctoral Dissertation Research: Between the Mechanical Calculator and the Electronic Computer: The History of the Social Production and Use of the Electrical Analyzer

This is a project that researches the history of the electrical analyzer in order to understand the articulation of ideological, political, and economic forces behind the social production and use of the electronic computer. The project groups electrical analyzers into three categories: artificial electric lines, short-circuit calculating tables, and alternating current network analyzers. They are all referred to as electric analyzers in order to emphasize the continuity between three couples of hegemonic as well as dialectically opposing social tendencies: mechanizing and calculating which brought about the mechanical calculator, electrifying and analyzing which brought about the electrical analyzer, and electronifying and computing which brought about the electric computer.